SBIR Phase I: Thin Film Water/Oxygen Barrier Coatings for Flexible OLEDs

This Small Business Innovation Research Phase I Project will formulate, design and fabricate a thin film flexible barrier coating specifically for Flexible Organic Light Emitting Diodes (FOLEDs). These barrier coatings are needed to improve the reliability and lifetime of FOLEDs.

Although the proposed technology will be developed for FOLEDs, it has a broad scope of applications where flexible barrier coatings are required. Specifically, these markets include food/beverage packaging and barrier technologies for thin film/flat plate photovoltaic devices.